Electronic Commerce Coursework in Computer Science

Computer Science (31)

We are creating and refining materials for a two-course undergraduate sequence in the area of e-commerce to meet two nationwide educational needs in computer science: 1) the lack of tested course materials in the area of e-commerce, and 2) the lack of significant opportunities for computer science students to pursue team work in an interdisciplinary setting.

The first course covers web technology for computer science majors and minors; the second is a unique interdisciplinary e-commer course open to students of all disciplines. In the second course, CS students have a different set of requirements than non-CS students as they provide technical expertise learned in the first course to student teams.